U.S.-Kenya Workshop to Develop an African Drought Research Agenda; December 11-14, 1992; Nairobi, Kenya

Technical Narrative: This proposed workshop, organized by the American Meteorological Society in conjunction with the African Academy of Sciences, is scheduled for 11-14 December 1992 in Nairobi, Kenya. This workshop immediately follows the First International Conference of the African Meteorological Society to be held 07-11 December. As the focus of the Nairobi conference is the Africa drought, attendance will provide an invaluable resource for the workshop participants toward the formulation of the drought research agenda. This proposal supports the attendance of 16 scientists from the U.S. and Africa (eight each from the U.S. and Africa). This workshop to plan future collaborative research activities fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Africa to combine complementary talents and pool research resources in areas of strong mutual interest and competence.